A Partnership for Innovations in Nanocomposites Technology

0090536
Jeelani

This award is to Tuskegee University to support the activity described below for 36 months. The proposal was submitted in response to the Partnerships for Innovation Program Solicitation (NSF 0082).

Partners
The partners are Tuskegee University; Auburn University; Nanotek Instruments; Advanced Composites Technologies and Associates (ACTA).

Proposed Activities
Nanotek will supply nano particles and fibers. Auburn University will develop process technology and microstructural characterization of the materials. Tuskegee University will incorporate the fibers and particles into composites and characterize the materials performance. ACTA will assist Tuskegee and fabricate isogrid cylinders through filament winding. The sole use for these cylinders at this time is for space applications via NASA.

Proposed Innovation
The proposed innovation is development and commercialization of high tech nano composites for isogrid cylinders for space applications.

Potential Economic Impact
The Space industry is the sole market at the moment. However, there are other potential applications if the current partners expand their vision and mix of partners.

Potential Societal Impact
The lead institution is a historically african-american institution. Involvement in the economic enterprise would have a good impact, especially if the partners pursue other potential applications. Increasing the number of african-american scientists and engineers with graduate degrees will be a major outcome.